REU Site for GIS and Soil/Water Research

This award provides support for an REU-Site in geography at Oklahoma State University. The project deals with applicdations of the geographic information system (GIS) to soil and water research problems. With the assistance of their mentors, student researchers will be responsible for: (1) conceptualizing a research question; (2) data collection, (3) GIS and statistical analysis; and (4) interpretation and presentation of project results. Examples of the topic areas for projects include GIS-based investigations of phosphorus and sediment transport, evaluating soil and water constraints on urban development, and studies of regional evapotranspiration. Students will have opportunities to take advantage of research support resources including ArcView Certification, GPS training, and mentor/peer seminars.

This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.